Fast High Resolution Wavelet Based Magnetic Resonance Imaging

This is a SGER proposal whose objectives are to (a), investigate, both theoretically and experimentally, a new, fast high resolution Magnetic Resonance Imaging (MRI) technique based on the discrete wavelet transform, and (b), establish (at least, experimentally) its feasibility and superiority over contemporary MRI approaches. The anticipated advantages of the proposed new approach include a dramatic reduction in the overall imaging time with no reduction in resolution or contrast.